SGER COLLABORATIVE: A Testbed for eRulemaking Data

SGER: A Testbed for eRulemaking Data

This small grant will support a collaborative, multi-disciplinary planning project to explore the potential application of text retrieval, text clustering, text summarization and topic threading research tools in the area of Federal government rulemaking over the Internet. Rulemaking is the process of considering public opinion before issuing final detailed implementation rules in response to laws passed by Congress, Erulemaking is the collection of public comments in digital form, including email, phone, and fax. One issue that the work will begin to address is the problem of large scale (greater that 100,000) submitted comments.